Oxide Dispersion Strengthened Magnesium Piston Alloy

Ultra-fine particles will be incorporated into pure magnesium by pressure infiltration to form oxide dispersion strengthened (ODS) magnesium. These alloys will derive strength from the fine particles and resulting dislocation substructures. By using particles which are thermally stable, the alloys will retain their strength at temperature for long periods of time. Hot hardness tests conducted on the alloys will be used to measure strength at temperature.